CAREER: Mesoscopic Interacting Systems

9703388 Maslov This is a CAREER award which combines theoretical research with education innovation. The research part of the award will focus on mesoscopic systems in which electron-electron interactions play a crucial role. Analytical and numepical techniques will be used to study Luttinger liquid effects in quantum wires and quantum Hall systems, concentrating on such issues as the coupling to the Fermi liquid reservoirs, paraconducting effects in inhomogeneous Luttinger liquids, Luttinger liquid to Fermi liquid crossover, electron-phonon scattering in Luttinger liquids, AC transport and noise in inhomogeneous Luttinger liquids and quasi-one-dimensional effects in strong magnetic fields in the presence of long range Coulomb interactions. Mesoscopic superconductivity will also be investigated. A special emphasis of the research will be to look at qualitative features of the effects under consideration. This part of the research will be incorporated in the educational activities. Qualitative methods in physics will be used as a basis for courses at both the undergraduate and graduate levels. These courses will teach students how to use simple techniques to gain insight to complex physical phenomena. %%% This is a CAREER award which combines theoretical research with education innovation. The research part of the award will focus on mesoscopic systems in which electron-electron interactions play a crucial role. Mesoscopic systems are ones in which various submicroscopic quantum effects become apparent on size scales of everyday phenomena. Examples include many microelectronic devices. Analytical and numerical techniques will be used to study a variety of phenomena. Mesoscopic superconductivity will also be investigated. A special emphasis of the research will be to look at qualitative features of the effects under consideration. This part of the research will be incorporated in the educational activities. Qualitative methods in physics will b e used as a basis for courses at both the undergraduate and graduate levels. These courses will teach students how to use simple techniques to gain insight to complex physical phenomena. ***